Conference: Plant Receptor Signaling at Iowa State University.

A symposium on Plant Receptor Signaling will be held at Iowa State University on June
22-25, 2006. Receptors are key molecules in the perception and response to stimuli,
including light, hormones and developmental signals, and biotic interactions such as
pathogens and symbionts. As such, this topic is of interest to basic and applied plant
researchers. This symposium is part of an ongoing series sponsored by the Plant Sciences
Institute. The symposium will feature 19 invited speakers of international renown, as well
as approximately 16 short talks selected from submitted abstracts. There will also be a
poster session and social activities to promote interactions. Session topics will include
Photoreceptors, Hormone Receptors, Receptors in Growth and Development, Receptors in
Biotic Interactions, and Genomic / Proteomic Approaches to Studying Plant Receptors.
Educational activities will include a 1-credit course for graduate students associated
with the symposium, and activities to assist undergraduates understand the science. Travel
grants will be made available to students, with particular emphasis on encouraging
minority participation.